Process Strategy for Improved Outgoing Quality and Lower Processing Costs for Secondary Ferrous Metal Products

The research project involves the development of an approach for reducing or eliminating the problems associated with processing of secondary ferrous metal and their representative costs. Based on a review of the actual industrial practice and operation data, improved methods of grading, marking, and separating will be synthesized. The developed methods will be incorporated into an expert system that provides the manufacturer with a systematic process strategy to assist in cost-effective matching of product grade with demand. The research base should provide an expert system for use by secondary ferrous metal manufacturers in outgoing quality control and cost reduction. The outcome can be adapted to non-ferrous metal recycling companies.